Computer Simulation and Computer Data Acquisition in Under- graduate Physics.

Otterbein College will integrate computer modeling and computational methods into the advanced courses of the physics curriculum and on-line data acquisition and analysis into experimental laboratories. Integration of these techniques with the advanced courses require on- site computer equipment for illustrative demonstrations, computational experiments and problem solving, and the acquisition and analysis of data. The equipment necessary to implement this expansion of the physics curriculum consists of 1) a computer physics work station and associated software; and, 2) an experimental physics laboratory work station with interface devices suitable for the diversity of instruments found in an advanced undergraduate laboratory. The acquaintance with current practices of working physicists provided by the equipment requested will give students a first-hand knowledge of all aspects of computer use as a physics research tool.